Tribal Colleges and Universities: Technical Assistance Support to the Tribal Colleges and Universities Program (TCUP)

The American Indian Higher Education Consortium (AIHEC) is an organization based in
Alexandria, Virginia, which has as its members 32 Tribally Controlled Colleges and
Universities (TCUs) from throughout the United States. AIHEC has a history of
administering programs and providing technical assistance on a variety of matters.

A Board of Directors composed of the presidents of all member colleges governs AIHEC.
A full-time staff is located at the AIHEC Central Office in Alexandria, Virginia.

AIHEC has a long-term commitment to improving technology and the use of technology at
TCUs.

This application is for a special project award to provide technical assistance to TCUs,
Alaska Native and Native-Hawaiian-serving institutions to be funded under NSF's Tribal
Colleges and Universities Program (TCUP).

Under the two-year TCUP technical assistance proposal described below, AIHEC proposes
to assist eligible applicants in developing high-quality proposals to the TCUP Program
through a two-day workshop and a web-based technology collaborative and to provide
on-going technical support to ensure achievement of TCUP goals and objectives.